Theoretical and Experimental Studies of Semiconductor Laser Quantum Noise

Proposal Number: ECS-9806922

Principal Investigator: Yaakov Shevy (University of Miami)

Title: Theoretical and experiment studies of semiconductor laser quantum noise

Abstract

The proposal is to study theoretically and experimentally the quantum noise of semiconductor lasers. Preliminary studies indicated that a minimum laser linewidth in the mHz range can be obtained. Refinement of the theory and experimental verifications will be investigated.